Developing an Instructional Opticaldisc Production Laboratory for Industrial and Civil Engineering

This project takes advantage of using videodisc and optical disc technologies in order to overcome obstacles inherent in teaching/learning manufacturing processes and pavement design/construction courses in civil engineering. These technologies are particularly effective for use in teaching manufacturing processes and related courses since complete understanding of these subjects cannot be gained without actually viewing the manufacturing processes.The opticaldisc recording equipment involved in the project permits control over the production and updating of optical discs, and the production of the instructional material on a timely basis and at a fraction of the cost of having the discs produced commercially.